REU Site: Democracy and World Politics Summer Research Program

The objective of this proposed project is to help students build a body of knowledge on the impact and implications of democracy on world politics. The PI and coPIs are experienced in this research area and are experienced working with students on such research.
This proposal is built the on success of the previous REUs. The proposed program is well designed, with structured seminars and workshops and well articulated relationships between mentors and students. There are introductory and capstone activities. Students will design and present in professional conferences. A distinctive feature is the development of communities. PI and mentors have experience in mentoring undergraduate students. They also have good institutional support.